AP Chemistry Workshop

The University of Arkansas is providing an opportunity for 15 high school chemistry teachers from the state of Arkansas to upgrade their background in content and methodology. This program is specifically designed to prepare these experienced chemistry teachers for the teaching of Advanced Placement (AP) Chemistry. Activities will include lectures on topics appropriate to this level of chemistry, laboratory experiments which will include those experiments on the AP list, seminars on current research being conducted on the campus, discussions with campus researchers, and visits and observations of classroom activities by the project staff.